Oceanography Short Course for Instructors of Undergraduate Marine Sciences

This three week Oceanography Short Course for Instructors of Undergraduate Marine Sciences is offered by the University of San Diego and Grossmont-Cuyamaca Community College. It updates instructors from 2- and 4-year institutions in the technologically impacted ocean sciences. Course objectives are to provide state- of-the-art information in marine research and applications; hands- on experiences in oceanographic sample collecting and data analysis; and new instructional materials and techniques. The forty participants earn three graduate semester units in Marine Studies by participating in a variety of activities at the University, and at Scripps Institution of Oceanography (UCSD), Grossmont Community College, the coastal nuclear power station at San Onofre, commercial aquiculture facilities, and Sea World/Hubbs Research Institute. Field excursions include data and sample collecting aboard the 125' R/V Gordon Sproul, site visits to classic exposures of sedimentary marine facies, and a voyage past the Los Coronados Islands to Ensenada, Mexico, to the University Autonomia de Baja California Marine Studies facilities. The program presents a broad spectrum of ocean-related information for undergraduate classrooms: cutting edge scientific information, instructional materials and software, and data on current marine studies programs and employment possibilities.